Grant to Print and Distribute the Report: International Research on Advanced Composites in Construction (IRACC 96)

9705234 Nanni This project will provide funds for producing and mailing 500 copies of the Workshop Report "International Research on Advanced Composites in Construction", which was held in Bologna, Italy and in Montreal, Canada as a follow on activity. The Report will be mailed to all Civil Engineering Schools in the United States and made available to others upon request. ***